Cognition in Predator-Prey Systems: Searching Image and Polymorphism

Bond 9631044 Insects often avoid predation through their resemblance to the backgrounds on which they rest. For example, the cryptically patterned forewings of woodland moths blend into the tree bark, making them difficult to detect. Many of these insects are polymorphic, which means that they occur in a variety of distinctive forms. Predatory birds, such as blue jays, that feed on these cryptic insects use a technique called hunting by searching image, in which they concentrate their foraging efforts on one prey type at a time while effectively ignoring the other types. This behavior improves their ability to detect cryptically patterned prey. It has often been assumed that polymorphism in prey species is an adaptive response to predators using searching images. This relationship between the behavior of the predator and the population biology of the prey has never been rigorously investigated. Using the responses of blue jays to computer-generated images of moths on a cryptic, textured background, the proposed research will explore several important features of the searching image mechanism and examine the effects of the predator's behavior on the diversity and abundance of prey.